Purchase of Workstation Network for Computational Chemistry and Physics

This award from the Chemistry Research Instrumentation Program will help the Departments of Chemistry at Brown University and the University of Rhode Island acquire, maintain and operate a workstation network. The areas of chemical research that will be enhanced by the acquisition include: 1. The Quantum Mechanics of Surface Adsorbates. 2. The Atomic Geometry of Solid Surfaces. 3. The Equilibrium and Dynamical Properties of Atomic and Molecular Clusters. 4. The Formation and Decay of Clusters. 5. Elementary Excitations in Liquids. 6. Quantum Monte Carlo Algorithums. Chemists carrying out frontier research are relying more and more on computers that are capable of handling sophisticated simulations, data analysis and graphics software. The need to accomodate multiple users on the single laboratory computer and multiple users on a single chemistry department facility can be met by a single solution: individual workstations for the majority of user needs and, for the remainder, ready access to other types of workstations and, ultimately, to a mini supercomputer